Workshop: Law, Legal Institutions and Civic Membership

The workshop will facilitate new research directions on the role of law and legal institutions in defining civic membership and how this activity subsequently shapes state-building. It will also expand the understanding of law and legal institutions as incorporated in American Political Development. The site for the proposed workshop is the Ohio University's Center for Law, Justice and Culture in Athens, Ohio.

The proposed workshop is anticipated to foster exchange and collaboration among a range of scholars in an emerging intellectual area. It has the potential to initiate a new and potentially transformative line of research by bringing together scholars from differing theoretical orientations.